First International Symposium on Cold Cathodes, 198th Meeting of the Electrochemical Society, October 22-27, 2000, in Phoenix, Arizona.

The renewed interest into cold cathode emitters is due to their potential applications for a variety of electronic devices, including microwave vacuum transistors and tubes, pressure sensors, thin panel displays, high temperature and radiation tolerant sensors, Hall thrusters, and electrodynamic tethers, among others. Introduction of such emitters would permit an unprecedented compactness and weight reduction in device equipment design.